RIA: Specialized, Fully Declarative Logic Programming Languages for Expert Systems and Databases

Specialized, Fully Declarative Logic Programming Languages for Expert Systems and Databases A family of logic programming languages is proposed -- one general purpose programming language, and the others specialized and aimed at major application areas of AI. The languages are fully declarative and based on solid mathematical foundations. The language for general purpose programming admits (unlike PROLOG and its currently existing generalizations) extended syntax: general quantifiers and a functional form of classical negation. This language is used as a basis from which the others are developed. The second language for expert systems has an intrinsic support for non-numerical measures of confidence and formal mechanisms for handling hierarchies of contradictions. The third language for deductive databases supports multiple open and closed domains and efficient query evaluation. The fourth language combines features of the previous two, and is suitable for distributed multi- component intelligent systems. The languages have a potential for parallelization. This research is based on a theory recently developed by the investigator and extended to support the features above. In this research, experimental implementations are also produced to allow validation of the theory and comparisons of efficiency with corresponding implementations of other languages. No languages with proposed features currently exist; their introduction will have a desirable impact on the construction of future intelligent systems.